U.S.-Brazil Cooperation in Synchrotron Radiation Research Applications

9512916 Schilling This U.S.-Brazil collaborative research project will carry out synchrotron radiation research using VUV spectroscopy and EXAFS, including establishment and characterization of a soft x-ray spectroscopy workstation and the conducting of experiments in small-angle x-ray scattering. The project will take advantage of newly created laboratory facilities installed at Louisiana State's Center for Advanced Microstructures and Devices (CAMD) and Brazil's Laboratorio Nacional de Luz Sincrotron (LNLS) in Campinas, Brazil. The project will be headed by Paul Schilling, Volker Saile, and Paul Russo at LSU and by Aldo Craievich at LNLS. The facilities at the two sites were each built with attention to compatibility with those at the other, including a toroidal grating monochromator beamline at LNLS and a joint LNLS/CAMD beamline at CAMD using a double crystal monochromator. Besides carrying out their own experiments, the PI's will train students and younger scientists in the use of the equipment. ****